Travel Support to International Workshop on Sustainable Development Strategies, Impacts on Climate, New Delhi, IndiaJanuary 25-30, 1993, Award in Indian and U.S. Currencies

Description: This proposal will support travel of eight US scientists to attend the International Workshop on Sustainable Development Strategies and Global/Regional/Local Impacts on Atmospheric Composition and Climate, New Delhi, January 25- 30, 1993. Professor M.P. Singh, Center for Atmospheric Sciences, Indian Institute of Technology, New Delhi and Sethu Raman, North Carolina State University are the conveners of the conference. The objective of the workshop is to provide a forum to review and discuss the current state of physical processes within the earth-atmosphere systems, their impact on the ecological system as a result of complex interactions and feedback processes and remedies to be sought to preserve the quality of the atmosphere. The workshop deliberations should lead to recommendations on more wide- spread utilization of existing technologies to cope with energy requirements in the immediate future; and the development of new energy/industrial/agricultural technology that will avoid the threat to our ecological system. Scope: The workshop is highly relevant to scientists from the US and India since it will synthesize information on global and regional climate variability and discuss sustainable development and energy use measures that need to be taken into account by countries adversely affected by climate change scenarios. Common issues to be addressed include forest and coastal zone management, groundwater storage, adaptation to likely shifts in agricultural patterns and aquatic productivity associated with the expected rise in global temperature from the greenhouse effect.